Travel: Travel Supplement for The Vison Workshop on Distributed Computing and Swarm Intelligence

The proposed travel grant aims to cover the expenses for United States (US) scholars attending the Vision Workshop on Distributed Computing and Swarm Intelligence, scheduled for June 24-26, 2024, in Sabaudia, near Rome, Italy. DISCOVER-US represents a pivotal collaboration between European Union (EU) and US research institutions, focusing on advancing distributed computing and swarm intelligence.

Intellectual Merit:
This Vision Workshop on Distributed Computing and Swarm Intelligence will address the following research areas:
o Managing complexity through high levels of abstraction;
o Distributed computing, the compute continuum, swarm intelligence, and edge AI;
o Self-organization, dynamic, and adaptive management; and
o Collaborative programming frameworks and software development tools.

Broader Impacts:
Reasons to support this request include providing the students with the opportunity to:
o Interact with top researchers within their research domain;
o Learn, listen, and exchange ideas with other experts and students working in their research domain to build future collaborations;
o Learn what is considered state-of-the-art in design, implementation, analysis, evaluation, and deployment of computer systems and applications at the edge; and
o Attend topic specific discussions.